U.S.-France Cooperative Research (INRIA): Implementing a Cluster Version of Java with the PM2 Distributed and Multithreaded Run-Time System

0084330
Hatcher

This three-year award for U.S.-France cooperative research involves Philip J. Hatcher and Robert D. Russell of the University of New Hampshire and Luc Bouge's research group at the French National Institute for Research in Informatics and Applied Mathematics'(INRIA) Laboratoire de l'Informatique du Parallelisme in Lyon, France. The proposal addresses implementation of the Java programming language for parallel programs on cluster computers using the multithreading package PM2 developed by the French researchers. The work will be performed in the context of the Hyperion environment, developed at the University of New Hampshire and comprised of a Java-bytecode-to-C translator and a run-time library for the distributed execution of Java threads. The proposal will advance understanding of Java language as a tool for programming distributed memory parallel computers.

This award represents the US side of a joint proposal to NSF and the French National Institute for Research in Informatics and Applied Mathematics (INRIA). NSF will cover travel funds and living expenses for US Investigator. INRIA will support visits of French researchers to the US.